An International Conference: Computational Mathematics

The investigator organizes an international conference at
Institut des Hautes Etudes Scientifiques to study folding and
self-assembly of macromolecules. Self-organization of
macromolecules is a fundamental question in molecular biology.
How molecules fold plays a major role in their organization. The
meeting fosters the creation of new tools by bringing together
scientists from several domains to consider the problem from
different perspectives.
DNA is like a long zipper whose teeth are pairs of
molecules, called base pairs, one molecule on each side of the
zipper. Links between the base pairs close the zipper. The zipper
is about six feet long in human DNA; to fit inside a cell, it
coils up. It partially uncoils to expose sections --- genes ---
that are read to produce an intermediate molecule, called
messenger RNA. Ribosomes read the messenger RNA and produce a
corresponding amino acid chain. The chain folds up spontaneously;
this is a protein. Proteins in turn perform their functions by
partially unfolding to interact with other folded macromolecules.
Proteins, genes, and DNA all fold and unfold to do their work. So
folding and self-assembly are central issues in molecular
biology. A goal of the conference is to stimulate synergistic
interchanges between different disciplines by bringing together
biologists, chemists, physicists, mathematicians, and computer
scientists to discuss these issues from different perspectives.